SSC: Michigan Summer Science Camps

SSC-9353155 Black Child and Family Institute Lansing, MI Vance, Irvin, Lang, Mozell and Pollard, John "Michigan Summer Science Camps" Michigan State University Mathematics Department, in collaboration with the Mathematics and Science Program of the Michigan Department of Education and the Black Child and Family Institute of Lansing, will offer a five-week summer science camp program combined with an academic year program for underrepresented minority students. This will be a statewide program with science camps offered in three Michigan sites each year. These sites will be in Lansing/East Lansing, Pontiac and Benton Harbor. Each site will operate with its own staff but with a common set of goals and a common disciplinary focus. A professional development workshop for staff will precede the camp. The young people served will be African-American, Hispanic-American and Native-American students from the Lansing, Pontiac and Benton Harbor areas. These students will be entering the seventh, eighth and ninth grades in the fall of 1993. Three commuter camps, each enrolling 60 students, will be held. In addition, a five-day residential camp, with an environmental focus will be held at the Kellogg Biological Station at Gull Lake. One Hundred and eighty students will participate in a program that will include mathematics, science, and environmental and computer science. Parents of participants will be expected to attend selected sessions and work periodically as program volunteers. Nine Saturday morning sessions for participants will be held at each site during the academic year. A recognition program for all participants, funded by Macmillan/McGraw Hill Publishing Company, will be held at Michigan State University in the spring of each year. The summer science camp program will address the need for a scientifically literate population and reversing the declining aptitude, interest and participation in science by underrepresented groups. The science c amps will offer: o an environment, conducive to learning science and mathematics, with tools, resources and expert teachers. o mentor relationships to nurture skills and predisposition for science and mathematics o four-week commuter summer science camp plus a one-week residential camp with opportunities to practice science and mathematics with a problem-solving, exploratory approach o a series of half-day Saturday programs, one each month during the academic year o strong parental involvement to support and guide the interest and direction of the child